Spectroscopic and Interferometric Studies of Airglow and Auroral Processes in the Antarctic Upper Atmosphere Over theSouth Pole Station

This grant provides the funds to continue to make measurements of airglow and aurora above South Pole Station, Antarctica. There are several instruments (Michelson interferometer, a scanning near- infrared photometer, a four-channel photometer and an Ebert-Fastie spectrophotometer) which produce infrared and visible spectral of several atmospheric species (oxygen, nitrogen and the hydroxyl radical). These measurements are used to deduce the mesospheric winds and temperature, planetary wave activity and the energy of the precipitating electrons which cause the aurora. This research is being done by undergraduate institution.